New Madrid Earthquake Project for Earth Science Teachers

This proposal, titled "New Madrid Earthquake Project for Earth Science Teachers," is designed to improve earthquake education among earth science teachers from seven states along the New Madrid fault zone: Arkansas, Illinois, Indiana, Kentucky, Mississippi, Missouri, and Tennessee. Sixty-three Middle/Junior High School, exemplary earth- science teachers will be selected: 28 the first year and 35 the second, evenly representing the seven states. The project includes a summer institute (2 weeks the first year, and 8 days the second) and follow-up activities each year. The teachers will receive a variety of instructional strategies (e.g. lectures, field and laboratory work, computer simulation, etc.) and a video produced by the project to facilitate earthquake education for students, teachers, and the general public. It is expected that each participant will conduct at least 3 awareness workshops averaging 20 teachers each; thereby almost 4,000 teachers will become familiar with the New Madrid Earthquake Project. The project provides a model for the study of other regional earth science topics. The utilization of regional topics results in secondary science students understanding a greater relevance for science in general, and earth science in particular. The cost sharing by UMC is close to 52% of the amount requested from NSF.